Oceanographic Instrumentation - 2003

0326107
Diebold
This award to Lamont-Doherty Earth Observatory of Columbia University in the City of New York provides instrumentation to significantly improve the geophysical survey capabilities of the research vessel Maurice Ewing, an NSF-owned ship operated by LDEO as part of the University-National Oceanographic Laboratory System research fleet. Specifically, support is recommended in for ten multichannel seismic reflection streamer sections, a Linux computer cluster for onboard seismic data processing, a RAID data storage system, refitting ten MCS streamer depth controllers with compasses, two DLT tape drives, multibeam sonar spares and water temperature sensors, a shore-based software license for training and quality control, an expendable bathythermograph controller with launcher, a color printer, and a passive acoustic cetacean monitoring system. The instrumentation supported here will improve survey capabilities and upgrade reliability of R/V Ewing for conducting geophysical and oceanographic research programs. These improvements will be of substantial advantage to marine scientists using the ship in their research during 2003 and future years.
***